Scattering and Reactions of Intermediate Energy Projectiles

This proposal will support the continuation of the experimental research
program of the intermediate energy experimental nuclear physics group at
Rutgers University. The three faculty members collaborate with a large
number of physicists throughout the world on experiments at Jefferson
Laboratory in Newport News, Virginia, home to CEBAF, a continuous beam
electron accelerator with energies available up to 6 GeV. In keeping
with the mission of the Laboratory, the experiments of the group are
designed to unfold the quark structure of nuclei and nucleons. The major
work for the coming grant period will be concentrated on the following
measurements at Jefferson Laboratory: deep virtual Compton scattering,
neutron spin structure, and the nucleon elastic form factors. The first
two measurements are intended to explore the substructure of the nucleon
measuring the position and momentum distributions of the quarks making
up the nucleon. The last elastic measurements study the properties of
the nucleon as a whole. The combination of these measurements and
others will help us understand the complex region where the description
of a nucleon as composed of quarks and gluons transforms into a picture
of nucleons surrounded by clouds of mesons. This grant period will also
see an expansion of the group's activities to the study of neutrino
interactions at Fermilab, in Batavia, Illinois. The goals are similar
to those being pursued at Jefferson Lab. However, neutrinos have a
different sensitivity to the substructure of the nucleon than do
electrons and photons. The study of neutrino interactions allows us to
develop a more complete understanding of the nucleon structure.

Beyond improving our basic understanding of nature, this project will
help train students in the techniques of basic research. Past students
trained by this group have gone on to contribute to society in diverse
fields including medical physics, management of nuclear waste and,
development of state of the art vacuum instrumentation.